DISSERTATION RESEARCH: Morphological Diversification of Anostomimorph and Curimatimorph Fishes

Non-technical abstract: Dissertation Research: Morphological
diversification of anostomimorph and curimatimorph fishes.

Why is biodiversity distributed unequally across the tree-of-life? Some
groups of species have evolved extraordinary anatomical variation while
other groups contain many species that look and act similar. To begin to
understand how and why the general phenomenon of unequal diversification
occurs, this research will investigate how and why a specific lineage of
South American fishes related to piranhas and tetras evolved an anatomical
diversity very much greater than that of the lineage of its closest
relatives. This case study is rare and valuable because it approximates a
naturally controlled experiment. Because the two groups of fishes contain
equal numbers of species, share a recent common ancestor (and therefore
began to evolve independently at the same time) and live together
throughout tropical South America, the differences in their diversities
cannot be explained by differences in net speciation rate, age, or
environmental effects. The removal of these factors leaves at least two
potential explanations of the observed differences in diversity. The
differences may be due to random evolution, or an intrinsic feature of
anatomy or ecology shared only by the more diverse group may promote the
evolution of new morphologies. This research program will investigate
these two alternatives by 1) using a detailed anatomical study to
reconstruct the genealogical relationships, or "trees-of-life" for these
fishes, 2) measuring the anatomical differences between these species from
an extensive series of x-ray images and 3) performing a novel analysis that
combines the measurements of anatomical differences and trees-of-life with
computer simulations of evolution. This analysis will test whether
diversities as different as those observed could have evolved randomly. If
the analysis were to reject the hypothesis of random evolution, then it
would be likely that an intrinsic difference drove one group to diversify
greatly while the other did not. If the second alternative is supported,
this project will identify the anatomical and ecological features most
likely to have catalyzed the evolution of novelties in the more diverse
group. Future studies can then test whether the evolution of similar
properties in other groups of organisms generally promotes the genesis and
maintenance of biodiversity.

In a broad sense, this study will help reveal why biodiversity is not
distributed equally across the tree-of-life for all organisms. The methods
developed for use in this project are transferable to studies of a wide
variety of other organisms and will be made freely available via the
Internet. This project will also promote international collaboration on the
study of an important group of tropical fishes valued as food throughout
South America, prized for their ornamental beauty worldwide and that serve
important ecological roles as part of the most species-rich freshwater fish
fauna in the world. Current and potential collaborations include work on
the discovery and description of new species, the building of natural
history collections in the United States and in South America, and
conservation biology. Results from this work also fuel a continuing
dialogue about biodiversity with students and museum visitors through a
series of exhibits and public presentations.